Optimum Design of Permanent Magnet Brushless DC Machines

The objectives of the proposed research are to developed an optimum design approach for permanent magnet brushless dc machines. Issues such as geometric complexities, configuration, armature reaction effects and nonlinear characteristics of the ferromagnetic materials will be addressed in the development of the modeling and optimum design procedures. The approach will be a nonlinear programming approach based on constrained optimization techniques. It is anticipated that the magnetic field will be solved by use of finite-element techniques, with an initial low degree of discretization meshes. The degree of discretization meshes will be increased with convergence of the optimum solution, for high accuracy and computing speed. Once an algorithm is developed to obtain the optimum design parameters, the performance of the system will be evaluated and compared with conventional design techniques. Feasibility and efficiency will be taken into consideration throughout the research project.